Using Physiological Structure to Model Individual Production: Determinants of Female Reproductive Effort

Current scenarios of predicted environmental change raise fundamental
questions about the expected responses of animal populations to changes in
local climate and food availability. Animal responses to environment are
mediated by physiological functions such as metabolism, digestion, growth
and reproduction. Using parallel simulation modeling and experimental
studies in the laboratory and in nature, the PI will investigate the effect
of food availability on reproduction in the timber rattlesnake (Crotalus
horridus) in northwest Arkansas. Rattlesnakes are excellent subjects for
these studies because of their abundance and large size which allows the
use of radio-transmitters (for location and body temperature information).
The simulation model is based on information about energy flow through
timber rattlesnakes discovered under a previous grant (IBN 9728470). New
studies will build upon and complement previous work. A laboratory
population of snakes will be maintained under three feeding regimes
designed to produce variation in reproduction. In nature, an experimental
food manipulation will test model predictions by comparing reproduction
between supplementally fed and control groups of radio-tagged female
rattlesnakes. Information gathered from these experiments will be used to
test previous predictions made by the simulation model, and then to refine
and improve the simulation. The results of this study will enhance our
ability to predict the responses of animal populations to environmental
change. The described studies will also provide multiple opportunities to
enhance science literacy and involve students (from grade school to
graduate school) in the process of science.